NSF Sponsorship of Faculty Awards for the 2000, 2001, and 2002 Future Truck Challenge

This grant provides support for the FutureTruck Challenge. This competition is jointly sponsored by the NSF, the Department of Energy and the automotive industry in support of the Partnership for a New Generation of Vehicles (PNGV) program. It has the goal of designing and competing commercially producible vehicles in the range of sport utility vehicles to trucks that are simultaneously comfortable, safe, roadable, commercially viable, and highly fuel efficient. Under this competition, a number of universities compete annually in this event. The award provides funding to support the competition and to offset costs for expenses such as team prizes, communication and safety equipment rentals and other competition expenses.